Three-Dimensional Numerical Simulation of Flows in Shallow Water Bodies Through the Use of Space and Space-Time Filtering Approaches: Research Initiation Award

Two numerical models will be developed to simulate the three- dimensional velocity field in shallow free-surface water flow. One is based on large eddy simulation, and the other utilizes a space-time filtering approach. The models will be applicable in the prediction turbulent motion of lakes and coastal water bodies.